NSF Student and Junior Researcher Travel Grant for 2017 Computational Geometry Week (CG Week 2017)

This award supports participation in the 33rd International Symposium on Computational Geometry, July 4-7, 2017. SOCG is a focused conference that considers how to develop algorithms to solve problems best stated in geometric form. Research presented at previous SOCG conferences has had significant impact on the US economy in diverse areas that include algorithms for geometric data processing, computer vision, geographic information systems, manufacturing, graphics and visualization, optimization, computer-aided design, and networks.

This award aims to increase the impact of this conference on students, particularly those
from under-represented groups, by encouraging and enabling their participation, especially in cases
where travel expenses would otherwise preclude their attendance. Participation in a top-level event
such as SOCG can be educating, motivating, and useful for networking, both with other students
and with more senior scientists. This support dovetails nicely with the Young Researchers
Forum, a successful satellite event added to the conference in 2012 to encourage and promote
computational geometry research by students and postdocs.